Collaborative Research: CyberAI Innovation: Securing Artificial Intelligence Agents: A Scenario-Based Educational Platform for Future Cybersecurity Professionals

This project aims to serve the national interest by preparing students to secure autonomous artificial intelligence systems used in government and other critical organizations. Artificial intelligence agents can browse websites, read email, execute software, access files, and manage data, but malicious instructions embedded in webpages, messages, documents, or code can cause unauthorized actions. The project intends to develop AgentSec, a scenario-based educational platform that enables undergraduate students to safely investigate, attack, and defend artificial intelligence agents in controlled environments. Its significance lies in strengthening students’ ability to identify untrusted inputs, limit agent permissions, trace harmful actions, and design safeguards for autonomous systems. The project plans to serve more than 500 students and produce open-source software, instructional materials, and reusable scenarios for nationwide adoption.

The project goals are to establish a transferable framework for artificial intelligence agent security education, develop authentic hands-on learning environments, and study the effectiveness of scenario-based instruction. The scope includes three progressive modules addressing data ingestion, tool-action, and multi-step reasoning-chain security risks. Students are expected to complete red-team exercises, blue-team defenses, structured reflection, and transfer challenges. Containerized sandboxes will support agents with controlled access to web content, email, files, code execution, application programming interfaces, and databases. Assessment will combine execution-trace checks, strategy rubrics, an artificial intelligence tutoring agent, instructor analytics, and a scenario authoring toolkit. A cross-institutional mixed-methods evaluation will examine usability, learning gains, attack and defense performance, transfer of learning, and workforce outcomes.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program, which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.